HCC: Neural Representations of Elastic Materials

Soft materials are used in medical devices, robotics, manufactured products, visual effects, virtual reality, and many other technologies. Examples include soft padding in medical devices and prosthetic liners, flexible robot hands, rubber seals and foam cushions in everyday products, lifelike silicone skin used in movies, and virtual objects that feel soft when touched. Predicting how these materials bend, stretch, compress, and twist is difficult because their behavior can change greatly under large deformations. Existing computer models often rely on simple formulas that cannot accurately predict how soft objects behave, which can result in medical and engineering products that do not perform as intended, cost more than necessary, or are poorly designed. This project will develop highly accurate digital twins of soft objects by measuring how real materials deform internally and using those measurements to build improved computer models. These computer models will use state-of-the-art artificial intelligence while following the laws of physics. The technology will support safer medical and robotic devices, faster and less expensive product development, more realistic computer animation and virtual reality, and improved design of soft manufactured products. The project will publicly release material measurements, computer models, and simulation software so that they can be used by researchers, educators, students, and companies. It will also train graduate students in computer graphics, artificial intelligence, and physical simulation, incorporate the research into university courses, and support outreach activities for high school students in Los Angeles.

The project will create a computational and experimental framework for learning nonlinear elastic material behavior from physical measurements. An industrial computed tomography scanner will be used to measure internal three dimensional displacements in specimens made from commonly used silicones, rubbers, foams, and soft three dimensional printing materials. Small visible markers embedded in the specimens will allow the researchers to track internal motion under controlled compression and indentation. The resulting volumetric displacement fields and measured surface forces will form an open dataset for learning and evaluating material models. The project will develop neural representations of elastic energy that capture general isotropic material behavior while enforcing physical symmetry and stability conditions. These learned material laws will be incorporated into finite element simulations and fitted to experimental observations through differentiable optimization. The research will also develop efficient nonlinear models for thin shells and slender rods, learn their behavior from measured forces, torques, and deformations, and compare them with corresponding volumetric models. Validation will include held out measurements and physical experiments involving contact, silicone skins, flexible structures, prosthetic liner models, soft robotic components, and haptic interaction. The resulting methods will advance data driven material modeling and provide more accurate and trustworthy simulations of deformable objects.